MRI: Acquisition of Equipment for Purdue Envision Center for Data Perceptualization

EIA-0216131
Christoph Hoffmann
James Bottum; Davis S. Ebert; Ananth Grama; Ahmed H. Sameh
Purdue University

MRI: Acquisition of Equipment for Purdue Envision Center for Data Perceptualization

This proposal, developing techniques to effectively utilize the information capacity available to human comprehension, aims at acquiring the visualization, sensing, and haptics infrastructure required for a new center. The center, connected to ultra high-speed network hubs, cable broadcast and high performance computing facilities, and on-campus technology incubators, will support applications' needs by a spectrum of research graphics, visualization, and systems infrastructure, as well as provide development, technology transfer, education, and outreach. The infrastructure includes 3D and next generation ultra-high resolution displays, and sensing and haptic devices. The project addresses the challenges posed by the devices with respect to perceptualization techniques, infrastructure for supporting data and processing rates for effective use, and integration of applications into the environment. Educational and outreach efforts include a comprehensive graphics curriculum built around the facility, minority recruitment, and retention efforts, national visualization fore, series of symposia and workshops, development of online educational material, public domain software, and use of Access grid as a vehicle for dissemination and collaboration. Moreover, the I-Light high-speed optical fibre infrastructure (10Gb/sec) will be connected with the facility.